Parallel Processing in the Undergraduate Curriculum

9353977 Hartman This is a two week workshop for faculty with limited access to parallel computers. Participants learn to integrate parallel processing into their courses. Tools include transputers, simulators, and a network connection to a research center. Topics include parallel algorithms, design of parallel programs, parallel architectures, integration of parallel processing into an undergraduate computer curriculum, and methods for teaching parallel processing to undergraduates. The workshop includes lectures and laboratory sessions focusing on writing parallel programs and developing curriculum materials. The participants are expected to develop an instructional unit on parallel computing that they will teach in the 1994-95 academic year. ***